Theoretical Nuclear Physics

9413872 Shlomo The atomic nucleus is a many-body system of strongly interacting constituents bound together by the strongest forces known in nature. We will address unsolved problems in the study of nuclei, considering the effects of short and long range correlations on matter, energy and momentum density distributions of the constituents of nuclei. We will study important and fascinating phenomena associated with the motions of single nucleons, the correlated motions of several nucleons and the collective motions of many nucleons. Of particular interest are the areas of excitation and decay of giant resonances, large amplitude motion and dissipation and dynamic and decay of hot nuclei. For this purpose we will develop the formalism and the numerical techniques for calculating the nuclear spectral function, nuclear response function and the nuclear level density. ***